CAREER: Improving Network Operations with a View from the Edge

CAREER: Improving Network Operations with a View From the Edge
--------------------------------------------------------------

The Kaleidoscope project is developing techniques, tools, and systems to
facilitate network operations---a class of tasks that includes
monitoring network conditions, detecting actionable problems, and taking
steps to remediate them. We focus on two areas of network operations:
(1) network security (specifically, unwanted traffic) and (2) network
monitoring, diagnosis, and troubleshooting. The results from this
project will both streamline today's network operations tasks and
provide design insights for network operations in the next-generation
Internet.

Kaleidoscope specifically focuses on improvements to network operations
that rely on cooperation between users (or edge networks) and operators.
Users and operators have common goals but, more importantly, they have
complementary perspectives. Operators typically have broad views of
network traffic but have little fine-grained information about
compromised hosts or end-to-end performance. End users possess
fine-grained security and performance information, but they have neither
visibility the into network internals (e.g., configuration) nor a
comprehensive perspective of network conditions.

The first part of the project involves performing measurements and
analysis on the current Internet to better understand both the extent of
network operations problems today and the degree to which cooperation
between users and operators can mitigate them. Based on these findings,
the project will propose new approaches to network operations both for
the current Internet and for future networks. This research leverages
recent advances in streaming data management, machine learning,
economics, and privacy and may inspire new work in these areas, as well.